Upgrade of a 300 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Wisconsin in Madison will upgrade a 300 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) the synthesis of complex, biologically-active natural products; b) "foldamers", oligomers that display discrete folding preferences similar to those of biopolymers; c) chemical synthesis of carbohydrate derivatives; d) mechanistic investigations of alkene polymerization as catalyzed by metallocenes; and e) protein structure-function relationships.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.